REU Site: Gateway to the Geosciences - Strengthening STEM Pipelines through Keck Consortium Undergraduate Research

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on addressing societal challenges such as groundwater safety, resource management, and environmental sustainability and provides a unique opportunity to engage early academic career students in authentic scientific discovery research. The students will develop skills in field and laboratory-based research, data interpretation, and science communication through independent research projects and collaboration within a cohort of researchers. These experiences will prepare students for the workforce and provide them with the tools to address current and future geoscience hazards and resource management challenges.